Workshop: Building Blocks - Part One

This proposal funds a set of interactions, in particular a workshop next
month, between humanists and computer researchers to expand on the
possible uses of new technology in humanities research and teaching.
The proposal comes from the National Initiative for a Networked Cultural
Heritage. It supplements Rockefeller Foundation funding.

The major purpose of the workshop and the related activities is to
prepare a research agenda for the area of computational humanities and
define problems and needs for new technology, both to help the humanists
in their scholarship and educational activities, and to help explore the
new challenges and opportunities for information technology presented
by these areas.